Conference on the Frames and Spaces of Ordered Algebraic Structures

This conference is held at the University of Florida, from
March 9th through the 11th, 2006. It is referred to as Ord06/UF

This conference is the ninth in a series initiated in 1998; these
conferences have involved some aspect of Ordered Algebraic Structures.
Ord06/UF concentrates on the role of frame theory in the subject.
Ord06/UF, like its predecessors in the series, brings
together 25 to 30 mathematicians from various parts of the globe,
including graduate students and those who have recently received
their PhD degrees. A published proceedings of Ord06/UF is planned.

For as long as there has been academic training of
mathematicians, research and instruction have sought to abstract
as a means towards understanding of the concrete and the particular.
Thus, the arithmetical properties of numbers became abstracted to
the theory of groups and rings, these being algebraic constructs
invented to ``explain'' why the real numbers, for example, behave
the way they do. Another school of researchers seized upon the
geometric notion of distance between numbers or points in space to
develop the abstract concept of a topological space, which establishes
a sense of proximity without measurement of distance. In both of these
generalizations the aim has consistently been to capture a greater
catalogue of phenomena by the act of abstraction, and not to create
an esoteric replica of the instance that prompted the abstraction.
In this spirit the Ordered Algebraic Structurist has taken the
natural ordering of real numbers, together with its arithmetical
and topological aspects, and developed the lattice-ordered group
and ring. The contributors to Ord06/UF, broadly, have in common
an interest in how a lattice-ordered group may best be described by
functions which take on most of their values in the real numbers, and
in which features of the construct are carried over to the algebra of
functions. In this tracking of properties, topological spaces and
their generalization to frames have increasingly played an important
role. The notion of an algebraic frame, in particular, has a dual
identity, enabling one to simultaneously capture topological and
arithmetical properties, and, moreover, how one set of properties
influences the other.